The Study of Intermediate Energy Photonuclear Physics with Polarized Beams and Targets

This award will support continued study of the properties of the nucleon through the production of mesons and nucleon resonances.
The dominant component of this program isthe use of polarization observables in photonuclear reactions.
The experimental program is located at the Laser Electron Gamma Source (LEGS) at
the National Synchrotron Light Source (NSLS) at Brookhaven National
Laboratory (BNL). Combining our novel polarized HD target, SPHICE, and the
large acceptance SASY detector with the high quality polarized photon beam
at LEGS, the initial experimental program concentrates on sum-rule
measurements of the spin-dependent Compton amplitude for the nucleon to
provide a direct determination of the forward spin-polarizability and
Gerasimov Drell-Hearn sum rule integrals for the proton and the first such
measurement for the neutron. We will simultaneously measure the double
polarization observables for pion photoproduction from the proton and
neutron. The combination of SPHICE and SASY at LEGS makes measurement of a
complete set of observables possible, permitting the first model independent
multipole analysis. High quality double polarization data on the
photodisintegration of deuterium will also be obtained greatly expanding our
understanding of this fundamental reaction.
The JMU group is responsible for producing the high purity HD gas
required for the production of the polarized targets used for these
experiments, the operation and mapping of the the superconducting magnet to
be installed as part of the SASY upgrade, and will participate in the
collection and analysis of the data. Five undergraduate students will
participate in this project each year and gain experience in both on-campus
and off-campus activities.